Fracture and Fatigue of Piezoceramics Under Combined Mechanical & Electrical Loading

A number of fundamental issues related to the durability of piezoceramic actuators will be studies, specifically concerning crack growth mechanisms in these materials and the implications of domain wall (polarization) switching at the crack tip. A combined materials science-continuum mechanics approach will be used in both experimental and theoretical studies. The five areas to be explored are the intrinsic toughness of these materials, analysis of Vickers indentation cracks, effects of temperature and load frequency on domain switching, fatigue crack growth mechanisms, and the effect of crack surface boundary conditions on the near-tip stress and electric fields. Special attention will be paid to the characteristics of domain wall switching under long term cyclic mechanical and electrical loading.